Numerical Modeling of Multiphysics Systems

The main objectives of the proposed research are to design, analyze,
and implement accurate, robust, and efficient numerical methods for
partial differential equations which model complex multiscale
multiphysics systems arising in science and engineering
applications. In particular, the research will focus on several
critical components of the mathematical and numerical modeling of
coupled free fluid and porous media flows: identification of a correct
mathematical model, especially appropriate interface conditions,
analysis of the well-posedness of the model, design and analysis of
stable and accurate numerical discretization methods, including finite
element methods on non-matching grids, interior convergence and
postprocessing, and a posteriori error estimation and adaptivity, and
development of efficient solution algorithms such as parallel domain
decomposition and Newton-Krylov-multigrid solvers and preconditioners.

The numerical techniques to be developed in this research are general
and address fundamental questions of numerical analysis of partial
differential equations. Applications to coupling of groundwater and
surface water flows, as well as modeling of the cardiovascular system
will be emphasized. Computer modeling of subsurface and surface flow
and transport can provide reliable and cost-effective solutions to
environmental and energy problems such as contaminant surface water
and groundwater remediation and enhanced oil recovery. Current
simulators do not take into account the complex multiscale interaction
between subsurface and surface geosystems. This research will model
this interaction, which is crucial for the accurate prediction of
fluid behavior. The research will result in the development of robust
and flexible software tools for performing accurate realistic
multiprocessor simulations of contaminant remediation of wetlands,
lakes and estuaries. Mathematical and computational modeling of the
cardiovascular system is a relatively new but rapidly growing area of
research. This application has a vast importance to society. For
example, the heart attacks and strokes that result from
atherosclerosis are the major cause of death in industrial
nations. The aim of the proposed research in this area is to model
computationally atherosclerosis taking into account the recently
discovered, but critical effect of inflammation. Coupled macroscopic
models of blood flow within the artery and its wall will be combined
with cellular level models of acute inflammatory response. The
research will lead to the development of optimized simulation tools
which will advance prevention, detection, and therapy of
atherosclerosis.